Joint Workshop on Education and the Mathematics Research Community

The workshop, entitled "Changing in the Culture:Education and the Mathematics Research Community" is being organized to initiate the process of identifying and cultivating educational leadership in the research community. It is being jointly sponsored by the American Mathematical Society, the Mathematical Association of America, the Mathematicians and Education Reform Network, the Mathematical Sciences Research Institute, the Society for Industrial and Applied Mathematics, the Department of Mathematics of the University of California, Berkeley, and the Office of Academic Affairs, University of California.